ITR/SY: Combinatorial Optimization Algorithms for Informaion Access (Fundamental IT Models)

Proposal No: 0113371
ITR/SY: Combinatorial Optimization Algorithms for Information Access (Fundamental IT Models)
PI: Eva Tardos

The enormous growth in the amount of information online makes it vital
to automate the job of searching and organizing large data collections
while maintaining high accuracy. The research will consider two
seemingly unrelated tasks:

. Searching web pages, and
. Analyzing the content of digital pictures and movies.

Despite their obvious great importance, and the large efforts invested,
the currently available solutions for these tasks are inadequate. The
proposed research will address a difficult mathematical problem that
underlies both of these tasks, the classification problem with pair-wise
constraints.

The traditional classification problems consist of a set of objects to
be classified, and a set of labels (the classes). Classifying the topics
of documents on the Web, or individual pixels or regions of an image are
two examples of this general problem. The proposed research will build
on the PIs recent successes in applying powerful combinatorial
optimization techniques to develop algorithms for classification
problems with pair-wise relationships. Pair-wise constraints can
significantly enhance classification, by modeling, e.g., the relations
of physically close objects in an image, or relations implicit in the
hyperlink structure of the Web. The outcome of this research will be to
provide powerful new tools for two important tasks in searching and
organizing large data collections.